Nebraska NSF EPSCoR Implementation Project

9255225 Royce Ballinger The major goal of the Nebraska EPSCoR Committee is to design a practical, farsighted plan for science and engineering infrastructure development and technology transfer as part of its expanded responsibilities as an official science advisory board to the Governor of Nebraska. A key element of the plan is to sponsor specific research enhancement programs in Behavioral Biology, Metallobiochemistry, and Materials Research on Nanostructured and Complex Systems. Researchers from the University of Nebraska Lincoln, the University of Nebraska Omaha, and Creighton University will participate in the research programs. The overall program objective is to bring for the first time a logical and well ordered approach for: 1) evaluating the science and engineering strengths and needs of the state; 2) providing a forum for discussion between universities, the state government and the private sector in setting both short and long term goals, priorities and achievement standards for research; 3) establishing mechanisms for evaluating the effectiveness of the sponsored programs in achieving enhanced competitiveness for Nebraska's scientists and engineers and in fostering long range economic development for the state, and 4) promoting science and engineering in the schools and communities of Nebraska. ***